Simultaneous Infrared and Kinetic Studies on Supported Metals and Bimetallic Clusters

The current work studies the role of promoter materials with carbon monoxide-hydrogen reactions. This work will also be extended to include bimetallic clusters, support and dispersion effects. An infrared cell is used that permits simultaneous infrared and kinetic measurements; simultaneous infrared, temperature-programmed desorption; and temperature-programmed reaction studies, surface composition measurements from experimental extinction coefficients, and surface concentrations of catalytically active species under ;itin situ;ro conditions.